Numerical Methods for Digital Signal Reconstruction

The investigator develops efficient numerical methods for
multi-dimensional signal reconstruction using tools from harmonic
analysis such as local trigonometric transforms and wavelets.
The reconstruction problems that are considered range from
approximation of nonstationary signals from scattered data to
recovery of missing data in digital image sequences. Successful
solution of these reconstruction problems requires a priori
information about the signal, otherwise these problems are
ill-posed. Often this a priori knowledge can be derived from
physical properties of the process, for instance in terms of the
"local frequency behavior" of the signal. Local trigonometric
transforms and wavelets have become powerful methods for
analysis, compression and denoising of digital signals. The
investigator derives a mathematical framework for the application
of these concepts to signal and image reconstruction (beyond the
well-traversed area of denoising). The design of these
reconstruction methods is accompanied by the development of
multi-level regularization techniques in order to provide a
flexible framework for the incorporation of different kinds of a
priori knowledge about the signal. The investigator applies the
new numerical methods to the approximation of geophysical signals
from scattered data and to error correction in received coded bit
streams.
This project is motivated by a number of multi-dimensional
signal reconstruction problems arising in areas as diverse as
exploration geophysics, medical imaging, and telecommunication.
In order to optimally compress, transmit or analyze an incomplete
or distorted signal, it is necessary to first reconstruct the
original signal from the available data. This reconstruction
process includes the restoration of lost data as well as the
recovery of a signal from scattered noisy measurements. The
mathematical framework being developed here allows the design of
flexible and robust algorithms for the reconstruction of
multi-dimensional signals. Due to huge amount of data and
possibly required real-time processing the reconstruction
algorithms must also be fast and efficient. The derived
numerical methods are important for reliable error correction in
data transmission, for efficient reconstruction of geophysical
signals, and for other applications.